Support for Fundamental GPS Research - UNAVCO Facilities for Data Processing

0001631
King

This award provides three years of funding support to the PI and his team for the purpose of (1) improving the software documentation and user interfaces for earth scientists using Global Positioning System (GPS) data for precise position measurements, (2) providing interactive, Web-based time series data from global analyses that can be used by individual GPS researchers to assess the quality of their own analysis of GPS data, (3) training new and experienced GPS researchers in state-of-the-art processing strategies, and (4) assisting GPS researchers with data analysis problems.
***